Research Experiences for Undergraduates at University of Oregon

Dr. Geraldine L. Richmond and other members of the Chemistry and Physics Departments who are also members of the Chemical Physics Institute of the University of Oregon are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1993-5, ten undergraduate students from the Chemistry and Physics Departments will spend ten weeks each summer actively engaged in a variety of research projects. Projects cover the areas of physical chemistry and chemical physics. A unique feature of this program is the interaction between students and faculty from the two departments.